Oscillatory Flow Over Bottom Topography

In this project the P.I will carry out a laboratory study of oscillatory fluid flow over varying bottom topography. A stratified fluid will be contained in a rotating cylinder, with the rotation rate varied periodically about a mean value. Both barotropic and baroclinic oscillatory flow over slopes, hills, and valleys formed in the bottom of the cylinder will be investigated for the fluctuating and mean responses over a wide range of parameters. The data will be used for testing theoretical ideas, as well as the results of numerical models.